Continued Development and Distribution of Global Emission Inventories

This award supports the Global Emissions Inventory Activity (GEIA) which is a crosscutting activity of the International Global Atmospheric Chemistry (IGAC) project. The GEIA center coordinates the user and developer groups, provides effective distribution of GEIA data bases and related information, and manages the GEIA web site, which is the hub of GEIA information exchange and data base distribution. Additional activities include outreach and the initiation of new inventory activities.